REU: Undergraduate Research Training at the Whitney Laboratory

This is a Research Experiences for Undergraduates project. It will provide research experiences for eight students at the University of Florida Whitney Laboratories. Students will participate in projects involving: localization and quantitation of the enzyme glutamine synthetase in lower chordates and related invertebrates and oocyte growth in nonmammaliam vertebrates.